An Ultracentrifuge and Gel Analyzer for the Whitney Lab

Funds for a ultracentrifuge and gel analyzer for Whitney Lab, University of Florida, are requested. All the research efforts will be directed toward aquatic systems and vary over a broad range of subjects. Recently, molecular genetics has been added to the research portfolio at the lab. Among the species studied will be clams, shrimps, and jellyfish.